Flow Visualization in a Subsonic Wind Tunnel

This project complements the quantitative measurements made in a subsonic wind tunnel by visible correlation of actual fluid behavior. This is made possible by a bubble generator which produces neutrally buoyant helium bubbles that trace the air flow over the model.